Collaborative Research: AF: Small: Combinatorial Complexity Problems

Computational complexity characterizes what kinds of computational resources,
such as time, effort, space and energy,
are needed to solve challenging mathematical problems derived from real-world
activities, such as designing
aircraft, analyzing DNA evidence, or breaking a secret code.
This project applies recent cutting-edge work from combinatorics and
algebra to more clearly determine which problems are intractable (before
too many computational resources are wasted trying to solve them). This is important because,
knowing that a problem is hard to solve computationally can be
used in a different direction, such as creating codes that are harder to
break. Combinatorics is the ancient art of counting complicated mathematical
objects, and was the cradle for the development of early digital computers.
Algebra here refers to the study of certain symmetries which have recently
been discovered to be important in complexity theory.

More technically, this project approaches Geometric Complexity Theory
from the point of view of algebraic combinatorics to further clarify
feasible approaches to the VP vs. VNP Problem.
Specifically, part of the work will be devoted to the computational complexity
of counting certain Young tableaux and computing related constants
and polynomials in Algebraic Combinatorics and Algebraic Complexity,
respectively. These objects and quantities, while introduced in the beginning
of last century, are still not deeply understood. However, they have recently
enjoyed a healthy stream of advances from
various directions. Understanding their computational nature would clarify the
feasibility of some famous problems in Algebraic Combinatorics searching for
natural correspondences (bijections), and pave a new approach to their study,
leading towards better lower bounds in algebraic complexity. These objects and
quantities include understanding the Kronecker coefficients (an 80-year-old
problem), and efficiently computing Kostka and Littlewood-Richardson
coefficients. While no closed-form formulas for these coefficients exist,
their asymptotics can lead to new lower bounds in Geometric Complexity Theory
that are currently out of reach.
Specifically, distinguishing Arithmetic
Complexity classes like VP and VNP boils down to distinguishing their
universal polynomials (e.g. determinant vs permanent) under affine
transformations, ultimately translating to inequalities between representation
theoretic multiplicities involving the quantities mentioned.